Numerical Methods and Algorithms for Fully Nonlinear Second Order Evolution Equations with Applications

Fully nonlinear second order partial differential equations (PDEs) are referred to
a class of nonlinear second order PDEs which are nonlinear in (at least one) second
order partial derivatives of unknown functions. Such a class of PDEs arise from many
scientific and engineering fields including astrophysics, differential geometry, geostrophic
fluid dynamics, image processing, kinetic theory, materials science, mass transportation,
meteorology, and optimal control. They constitute the most difficult class of PDEs to
analyze analytically and to approximate numerically. Building on the PI's recent success on
developing convergent and efficient numerical methods and algorithms for fully nonlinear
second order (time-independent) elliptic PDEs, the proposed research project intends to
carry out a comprehensive and systematic study of numerical methods and algorithms
for fully nonlinear second order (time-dependent) evolution PDEs. The objectives of the
proposed research include (i) to develop the vanishing moment method and the moment solution
theory for fully nonlinear second order evolution PDEs, (ii) to develop fully discrete
Galerkin type numerical methods (e.g. finite element methods, mixed finite element methods,
spectral and discontinuous Galerkin methods) for fully nonlinear second order evolution PDEs
based on the vanishing moment methodology, (iii) to apply and/or to adapt the developed numerical
methods to a number of emerging application problems which are governed by fully nonlinear second
order PDEs, (iv) to develop computer codes for implementing the proposed numerical methods.

As numerical approximations of fully nonlinear second order evolution PDEs is an untouched
sub-area within the numerical PDEs and those PDEs arise from many important applications in
astrophysics, differential geometry, geostrophic fluid dynamics, image processing, kinetic theory,
materials science, mass transportation, meteorology, and optimal control, the completion of the
proposed research project is expected to have a profound impact on solving this class of PDEs and
on providing the much needed capability and enabling tools for solving a range of important
application
problems which are governed by fully nonlinear second order PDEs. As a by-product, the moment
solution theory is expected to give some insights to our understanding of the viscosity solution
theory, and might be very likely to provide a logical and natural generalization and extension
for the viscosity solution theory which is not natural and neither practical from the computational
point of view. The educational component of this project is to engage and train graduate students in
developing necessary applied and computational mathematics knowledge and skills so that they can
pursue a successful career in science and engineering in the future.